MRI: Acquisition of Equipment to Support Research and Education in Ecosystem Science and Resource Management

An award has been made to Paul Smith's College under the direction of Dr. Daniel Kelting for the acquisition of a suite of instruments to be used in on ecological research and teaching. The instrument will enable measurement of elemental analysis of biological samples, measurement of carbon and nitrogen content in aquatic and terrestrial samples, and metal content in plant and soil samples. Such data can be used in studies of ecosystem studies of forests and lakes near the college, and in watershed monitoring. The instruments will be used by biology students in a capstone course on field ecology. The equipment will also be a community resource for residents in the Adirondack Park area surrounding the campus.